U.S.-France Cooperative Research: Regulation of Gene Expression in C. reinhardtii Chloroplasts

This three-year award for U.S.-France cooperative research in plant genetics involves the research group of David B. Stern, the Boyce Thompson Institute For Plant Research, Cornell University, and the research laboratory of Francis-Andre Wollman, Institut de Biologie Physico-Chimique at the French National Center for Scientific Research in Paris, France. The award provides travel support and subsistence to Dr. Stern, his postdoctoral researchers, and graduate students. The objective of the research is to characterize the regulation of chloroplast gene expression in unicellular green alga Chlamydomonas reinhardii. The project takes advantage of French expertise in characterization and provides access to specialized equipment for the fluorescence analysis of mutants. It will advance understanding of chloroplast gene expression.